CAREER: Program Analysis and Transformations for Asynchrony

Asynchronous programming is in demand today because responsiveness is
important on all modern devices: desktop, mobile, or web. Asynchronous
programming is especially important in mobile and wearable apps, which
are expected by 2016 to reach 300 billion downloads annually. One
contemporary development task is refactoring long-running, blocking
synchronous code (e.g., accessing the web, database, or file system)
into non-blocking asynchronous code. While major programming languages
make asynchrony possible, they do not make it easy.

This proposal aims to significantly enrich educational resources and
programmers’ toolset for adding, modernizing, tuning, and suggesting
asynchrony. The PI plans to pursue research activities in four areas:
(1) Mining and recommending refactorings; (2) Automated refactorings for
adding asynchrony into mobile apps, for modernizing legacy asynchronous
code, and for converting between async variants; (3) Detecting and
fixing async errors; (4) Extending async refactorings to other domains,
with the intent of discovering theories and reusable principles.
This project has the potential to revolutionize how mobile app
programmers use asynchrony, to educate them about successful usage of
asynchrony, and to significantly reduce the cost and increase the
quality of their code.